Metabolism of Abscisic Acid

The plant growth substance abscisic acid plays an important role in plants in several physiological processes, such as responses to environmental stresses, seed maturation and dormancy, and membrane transport. Abscisic acid reduces water losses from plants by causing stomatal closure, while at the same time stimulating water uptake by the roots. During water stress the level of abscisic acid in leaves increases dramatically. To understand the physiological role of abscisic acid, it is important to know how plants control their levels of abscisic acid. This project deals with the biosynthesis and degradation of abscisic acid. The proposed research is based on the hypothesis that abscisic acid is a degradation product of certain xanthophylls with xanthoxin as an intermediate, and that the oxidative degradation of carotenoids is the step in the pathway that is stimulated by dehydration. Objectives are 1) to obtain conclusive evidence that abscisic acid is a degradation product of carotenoids and is not synthesized directly from mevalonic acid, as are certain sesquiterpenoid stress metabolites; 2) to determine which carotenoid is oxidatively degraded to abscisic acid; 3) to find out which steps are involved in the conversion of xanthoxin to abscisic acid by the use of mutants; 4) to develop a cell-free system for oxidative cleavage of xanthophylls that is relevant to the stress-induced abscisic acid production, and 5) to study in vitro how the hydroxylation of abscisic to phaseic acid is regulated. Once the pathway to abscisic acid has been worked out, it will be possible to find out how a water deficit plant stimulates biosynthesis, and how restoration of turgor causes rapid breakdown of abscisic acid. These studies are therefore of interest in connection with the response of plants to water deficits.***